GEM: HF-Radar Signatures of the Cusp and Low-Latitude Boundary Layer

An integral component of the multi-agency U.S. Global Change Research Program (Our Changing Planet," Committee on Earth Sciences, 1991) is understanding and modeling the geospace environment. As part of its contribution to the U.S. Global Change Research Program, the National Science Foundation's Division of Atmospheric Sciences has established a new research initiative, Geospace Environment Modeling (GEM), with the goal of supporting basic research into the dynamical and structural properties of geospace, leading to the construction of a global geospace model with predictive capability. The subjects of the first GEM campaign are the magnetospheric boundary, the magnetosheath beyond it, and the connection from the boundary through the magnetosphere to the ionosphere. Radar data will be examined in conjunction with satellite data to determine the ionospheric signatures which characterizes the cusp and low latitude boundary layer. In addition, data from the IMP-8 satellite will be utilized to determine how these signatures are related to the IMF and the wind dynamic pressure.